MRI: Acquisition of Stable Isotope Instrumentation for the Biogeosciences at Princeton University

Intellectual Merit:
The PIs are requesting funds to acquire a suite of instruments for stable isotope (N) research, including a denitrifier-based, natural abundance isotope system, a tracer isotope system, and general purpose natural abundance peripherals for an existing mass spectrometer. Specific instruments requested include a Thermo Electron MAT 253 stable isotope mass spectrometer, a Thermo DeltaVAdvantage stable isotope mass spectrometer with peripherals, an EA peripheral for combustion-based isotope analysis, and a GasBench II carbon dioxide preparation and purification system. The proposed instrumentation would enable research efforts examining natural stable isotope abundances that include ocean biogeochemistry and paleoceanography, terrestrial biogeochemistry, carbon isotopes in Precambrian Earth history. Stable isotope tracer research would include nitrification, nitrogen fixation, and carbon partitioning during biostimulation.

Broader Impacts:
The PIs state that the proposed instrumentation would expand the research capabilities of the institution and specifically the Departments of Geosciences and Ecology and Evolutionary Biology. The improvements to the denitrifier method will also serve to expand the capabilities of the ocean research community at large. Additionally, the proposed instrumentation will enable method development and provide training for undergraduate students at the institution and those participating in a collaborative effort with the University of Cape Town.